Correlation of Meter-Scale Cycles & Cycle Sets in 'Purbeckian' Rocks in the Spanish Prebetic, the French Jura & Dorset England: An Application of the Milankovitch Orbital Forcing

Anderson
EAR 9902680

Limestone sequences over 250 meters thick in the Lower Cretaceous of Spain, England and France are made up of hundreds of meter-scale sedimentary cycles produced by apparent rises and falls of sea-level. The purpose of this project is to map the distribution and hierarchic arrangement of these cycles at key localities in each country to demonstrate that the cyclic patterns can be matched. Correlation of these cycles would be strong evidence that a global process acted in the Early Cretaceous to control the accumulation of sedimentary rocks. The global process, the 'Milankovitch Orbital Forcing Hypothesis', is a periodic mechanism that may control sea-level by forcing change in global glacial ice volume or causing changes in climate. This project is expected to be a significant test of this fundamental hypothesis.